GOALI: Precision Motion Control With Iterative Input Refinement

Driven by the continuing demands of higher throughput and better
quality in the electronics industry, motion requirement of mechanical
components is becoming increasingly stringent in terms of speed and
precision. At such performance regimes, mechanical vibration,
electrical saturation, and system nonlinearity become the main
bottlenecks. Based on the academic/industry collaboration initiated
by the PI's, a promising input iteration approach has been
proposed to take these issues into account, instead of the traditional
input shaping approach, which is only effective for linear systems
with a small number of resonant modes. This research will address the
convergence, performance, and robustness of the iterative refinement
algorithm, enhance its effectiveness by including on-line optimization
and general trajectory tracking, validate and demonstrate the results
experimentally on several precision motion testbeds, and implement on
industrial electronic packaging machines. Because of the presence of
motion control in applications small and large, including MEMS
actuation, micro-manufacturing, disk drives, and machine tools, it is
anticipated that the algorithms disseminated based on this research
will have broad applicability to diverse manufacturing industries. In
addition, the precision motion testbeds developed for this research
will be used in undergraduate control courses to aide teaching of
modeling and control design of high performance motion systems.